Radiation Protection Management for Non-Military Nuclear Technologies in the Developing World Since 1955

9411952 Calkins This project will provide support for an historian of international relations to receive one year of training in nuclear engineering, health physics and radiation protection fundamentals. The investigator will also undertake collaborative research with a senior nuclear engineer and health physicist, to enable her to study the radiation protection management strategies accompanying the worldwide diffusion of non-military nuclear technologies. Project research will develop along three related lines: i) a study of the role of radiation protection management features in developing countries' nuclear technologies acquisition programs since 1955; ii) identification of the structures and content of formal and informal international regulatory regimes for assuring exposure risk minimization in the education, health and safety, materials management, and facilities oversight sectors; and iii) an assessment of developing countries' past, current, and probable future engagement with those regulatory regimes. The outcome will be multi-dimensional and technically specific examinations of the process of nuclear technology development and accompanying radiation protection regulation outside the advanced industrial states. It will offer new insights into the utility of various international regulatory regimes in non-military sectors and into radiation protection and materials management worldwide. Results will be disseminated broadly through publications and presentations in academic and policy-making communities, as well as through university and public presentations. ***